Expansion of Electrochemistry in the Undergraduate Curriculum

The undergraduate chemistry program is being strengthened by the integration of the use of voltammetry and coulometry in the curriculum. Seven courses (Organic Chemistry, Qualitative Organic Analysis, Physical Chemistry Lab, Biochemistry, Quantitative Analysis, Instrumental Analysis and Independent Research) are being revised to provide students with the opportunity to put electrochemical principles into practice through "hands-on" experience, both in lab projects and in independent research. The use of voltammetry and coulometry is complementing the current chemistry program in which students are using ultraviolet-visible and infrared spectrophotometers, NMR spectrometers, gas and liquid chromatography. Thus, integration of electrochemistry in the curriculum is assuring that students receive a more complete preparation in instrumental practice. The grantee is matching the award from non-Federal sources.